GOALI/Faculty and Students in Industry: Variation Simulation and Planning for Deformable Part Assembly

9631590 Hu This GOALI award is for the development of an industrial-university cooperative relationship between Variation Systems Analysis, Inc. (VSA, Inc.), and the University of Michigan in jointly developing manufacturing process simulation methodologies for deformable part assembly. A Ph.D. student from the University of Michigan, under the guidance of an academic advisor and an industrial mentor, will (1) gain experience in manufacturing process simulation; (2) develop a new, generic mechanistic variation simulation methodology for deformable part assembly; (3) validate the newly developed variation simulation methodology by comparing with of the art techniques; and (4) apply this methodology to assembly fixture configuration design. Manufacturing process simulation, in particular, variation simulation, can provide valuable knowledge about the characteristics and capability of the process, thus helps manufacturers design better processes to deliver quality products in a timely fashion. However, currently available variation simulation methodologies are not applicable to deformable part assembly processes because these methodologies are based on rigid body assumptions. Deformable part assembly processes are widely used in manufacturing automobiles, aircraft, furniture, and appliances. The mechanistic variation simulation methodology will greatly enhance the scientific understanding of deformable part assembly product/process design.